CPS: Breakthrough: Wearables With Feedback Control

Recently there is an increasing availability of smart wearables including smart watches, bands, buttons and pendants. Many of these devices are part of human-in-the-loop Cyber Physical Systems (CPS). With future fundamental advances in the intersection of communications, control, and computation for these energy and resource limited devices, there is a great potential to revolutionize many CPS applications. Examples of possible applications include detecting and controlling hand washing to prevent transmission of infections or bacteria, monitoring and using interventions to keep factory workers safe, detecting activities in the home for monitoring the elderly, and improving rehabilitation of stroke victims via controlled exercises. However, to date, much of the work on wearables concentrates on only sensing, collecting and presenting data. For use in CPS it is necessary to consider the increased use of new sensing modalities, to apply feedback to close the control loop, and to focus on the fundamental issues of how both the environment and human behavior affect the cyber. In particular, since humans are intimately involved with wearables it is necessary to increase understanding of how human behaviors affect and can be affected by the control loops and how the systems can maintain safety.

This work develops generic underlying algorithms for processing smart wearable data rather than one-off solutions, it extends the understanding and control of wearable systems by addressing humans-in-the-loop behaviors, and it explicitly focuses on the impact of the environment and human behavior on the cyber. Novel ideas are proposed for each of these areas along with a structure for their integration. For example, the algorithmic approach to support more robust, accurate and efficient activity recognition using wearable devices is based on five fundamental concepts: (i) Direction Agnostic Modeling, (ii) Direction Aware Modeling, (iii) Spatial Reachability, (iv) Spatiotemporal Segmentation, and (v) Dynamic Space Time Warping. For dealing with humans-in the-loop behaviors, Model Predictive Control (MPC) is extended to semantic based MPC. This solves control problems that are not amenable to electromechanical laws and employs machine learning. Many CPS projects do not explicitly address how the uncertain world affects how the cyber must be developed in order to perform robustly and safely. A new *-aware software development paradigm focuses on physical-cyber CPS issues as central tenets and that serves as an integrating platform for all the proposed work. The *-aware paradigm focuses on how software must be made robust to handle the physical world, while meeting safety and adaptability requirements